Doctoral Dissertation Research in Sociology

This is an award under the Grants for Improving Doctoral Dissertation Research program. It is a study of urban agriculture in Kampala, Uganda, examining this form of farming as an adaptive response to the economic crisis which besets much of Africa. With a diverse set of research methodologies, this project will collect and analyze dietary and nutritional anthropometry data, land access and tenure data as well as socio-economic and agricultural data. Theoretical analysis will focus on the reasons for urban agriculture, the constraints on this practice, and the impacts on individual well-being and on the household. This study promises to collect information of significant value for African urban policy, and it will contribute to the sociological understanding of human adaptations to social and economic crisis. In addition to the scientific gains to be achieved by the research, this award will materially assist a highly promising student in completing research for the Ph.D. dissertation. Thus it contributes to the future scientific manpower of the nation and the thorough training of the next generation of sociologists.